Existence of Solutions to Hyperbolic Differential Equations in Mathematical Physics

PI: Hans Lindblad, Univ. of Cal. San Diego
DMS-0200226

Abstract:

Lindblad's research concerns basic mathematical questions for systems
of nonlinear hyperbolic equations in mathematical physics.
These include several important equations in classical field theory
and continuum mechanics as well as in classical physics, e.g.
Einstein's equations in general relativity and the equation of
fluids and elastic bodies.
These basic questions are:
(i) Do we have local existence and uniqueness of solutions
in a certain class?
(ii) Do we have blow-up of solutions? (e.g. black holes in general
relativity)
(iii) What is the long time behavior of solutions?
More specifically, Lindblad is mainly working on two projects.
One on proving the well-posedness
for a class of problems that occur in fluid dynamics and general
relativity, in particular proving the well-posedness for the free
boundary problem of the motion of the surface of a fluid in vacuum.
A long term goal is to study the long time behavior of astrophysical
bodies such as gaseous stars as well as the surface of the ocean.
Another project is to study global solutions of equations related to
Einstein's equations. A long term goal is to simplify and generalize
the global existence results for Einstein's equations.

These two problems are related to the question of whether
the fundamental equations in physics have global solutions.
Solution to these questions could have important consequences. For
instance, it is conceivable that one could use the knowledge obtained from the
solutions of Einstein's equations to permit the use of gravitational
waves to observe the Universe. Understanding the properties of
and controlling the interface between two fluids could have industrial applications.

To solve these problems Lindblad and his collaborators are developing new techniques that could be useful for studying many other problems as well. In particular, they are using geometric methods to study hyperbolic
differential equations.